The Reactivity of Quadruply Bonded Ditungsten Complexes with Unsaturated Organic Molecules and Chlorinated Hydrocarbons

Dr. Judith Eglin, Department of Chemistry, Mississippi State University, is supported by the Inorganic, Bioinorganic, and Organometallic Program of the Chemistry Division under a Research Planning Grant to study the synthesis and reactivity of tungsten complexes. The reactivity of multiply-bonded ditungsten and dimolybdenum complexes with chlorinated hydrocarbons will be explored, with the ultimate goal of catalytic dehalogenation. Mononuclear tungsten complexes will also be investigated for their potential as precursors to conducting materials. These planning activities will advance Dr. Eglin's career by providing a basis for preparing a competitive NSF research proposal subsequent to the completion of this Research Planning Grant. The chemistry of tungsten and molybdenum is unique in that these metals tend to form complexes in which two of these metals are bound to one another through multiple bonds. The reactivity of these compounds with chlorinated hydrocarbons suggests their potential use in the dehalogenation of these environmentally harmful molecules. Futhermore, the unique geometry of tungsten lends itself to the study of conducting materials, which could have important industrial applications.